Research Initiation: Schemes for the Analysis and Recognit-ion of Speech Based on the Fundamental Principles of Sound Processing in the Auditory System

The objective of this research is to develop a speech processing scheme based on new models of the auditory system. The results are expected to be applied in the analysis and automatic recognition of speech. This may lead to better speech processing for auditory prostheses.